Optically-Gated Energy Transfer

With funds for a Small Grant for Exploratory Research from the Organic Dynamics Program of the Chemistry Division, Professor W. Grant McGimpsey of Worcester Polytechnic Institute will carry our work relating to the design, synthesis, and time-resolved photochemical evaluation of relatively large, multichromophoric molecules which are candidates for functioning as optically driven photonic and electronic wires. The novelty of this proposal is the use of a second laser pulse to excite a metastable triplet formed in a first pulse. The chromophore on which excitation ultimately resides will be accessible only following absorption of the second photon, and thus absorption or emission which requires that chromophore is a signature for the second photon. The future of computation requires ever decreasing size and ever increasing speed. At some point molecular devices may become practical and well understood enough to be functional contributors to this goal. Materials such as those being studied might eventually function as molecular switches, potentially a component of future computers. The basic research to be done in this project lays the groundwork for both materials and technique.